Development and Tribological Studies of Nanocrystalline Carbon Nitride Superhard Coatings Rivaling Diamond

9520635 Chung Development of crystalline carbon nitride coatings will be attempted by seeding and epitaxial growth of alternating nano-scale layers of nitride-based seeding materials and carbon nitride. The processing conditions will be optimized and the coatings will be characterized in terms of composition,structure, surface morphology, chemical bonding, and nano-indentation hardness. Finally, the tribological properties of the coatings will be determined. ***